Engineering Research Equipment Grant: Acquisition of Float- ing Point Array Processors/for Seismic Analysis Research

Research equipment is provided to support Columbia University's earthquake engineering program. To keep abreast of advances in computing-related seismic analysis research, two Analogic Array Processors consisting of an 8 MB RAM, a 1600 bpi magnetic tape, graphics processor and 2 MB of additional memory for the HP-9000 computer system supplemented by its vectorized mathematical subroutine packages are required. Array processors are unique when integrated with the HP-9000 computer system, which has been installed in the Civil Engineering Department. Besides being economical, the system will provide an even higher performance alternative to larger and much more expensive mainframe computers in terms of, for example, solving large-scale numerical problems including those of complex eigen solutions and multi-dimensional Fourier transforms, and in terms of performing signal and image processing operations--all in real time.